Birational geometry of analytic varieties and the minimal model program

Algebraic geometry is the study of projective varieties, which are compact geometric objects defined by solutions to homogeneous polynomial equations. In recent years there has been substantial progress in understanding the geometry of projective varieties. The main technique, known as the minimal model program, aims to describe this geometry in terms of building blocks that are either positively curved, flat, or negatively curved. In dimension 1, for example, these building blocks correspond to Riemann surfaces of genus 0, 1, or greater than or equal to 2. This project aims to generalize the recent breakthroughs in the minimal model program for projective varieties to the context of Kähler varieties. A Kähler manifold is a complex manifold endowed with a closed positive (1,1) form. It is easy to see that every projective variety is a Kähler variety; however, most Kähler varieties do not have a projective structure. Kahler varieties are fundamental objects that play an important role in many contexts including algebraic geometry, Riemannian geometry, and string theory. This project will also play an important role in the training of graduate students and postdocs.

The research in this project aims to establish results for compact Kähler varieties in the vein of collaborative results of the principal investigator and Birkar, Cascini, and McKernan culminating from recent success of the minimal model program for complex projective varieties. Since divisors and line bundles are rare on non-projective Kähler varieties, it is not possible to use cohomological methods, and new tools must be developed. The principal investigator has introduced a new framework of generalized pairs, which consist of the usual pairs and a b-nef, locally exact, (1,1) form. These generalized pairs allow for a much larger degree of flexibility, where ample (respectively, big) line bundles are replaced by Kähler forms (respectively, Kähler currents). With this added flexibility, the project will use an inductive strategy to prove results analogous to those in the above-mentioned work of the principal investigator and collaborators in the Kähler setting. The strategy relies on two main techniques: the study of the maximal rationally connected fibration (in the non-big case) and the study of log canonical centers of generalized pairs (in the big case). In both cases, the canonical bundle formula for generalized pairs will play a key role. As part of this project, the principal investigator plans to prove Tosatti's conjecture on the transcendental base point free theorem and to establish the minimal model program with scaling of a Kähler form. This has important applications to the Kähler-Ricci flow and its continuation through singularities.